CISE ADMI Visiting Scientist Program

The Association of Department of Computer Science and Engineering at Minority Institutions (ADMI) and the Computer Society of the IEEE will initiate a pilot visiting scientist program for selected minority institutions. Experts across the field will be selected to visit minority institutions to assist in strengthening their academic and research programs. The visiting experts will be matched to selected institutions for maximum benefit. Ten institutions will take part in the first phase of this project.